Development of a Carbon Isotope Stratigraphy Across the Paleocene/Eocene Epoch Boundary in the Northern European Stratotype Sections

9405375 Stott The transition from Paleocene to Eocene time was one of the most important environmental and biological transitions in Earth history. PI, in collaboration with European colleagues, will continue to delineate the Paleocene/Eocene boundary, by its postulated carbon isotope excursion, in classic marine and non- marine sections. This boundary marks an important paleoclimatic, paleoceanographic and paleobiologic shift, currently the focus of interest for a large, international group of investigators. Detailed sampling of sections in Paris and London basins will be followed by isotopic analyses of soil carbonates, marine micro- and macrofossils. These data will be correlated with DSDP Site 550 (and 549), which provides a carbon isotope reference section, and other classic Paleocene/Eocene sites, e.g., in Wyoming.